"Engineering Research Equipment:" Atomic Absorption Spectrometer for Catalysis Research

An Atomic absorption spectrometer is acquired. The instrument will be used for research on catalysis, structures of zeolites and other molecular sieves, and novel oxides formed by soft chemistry.